Intracellular Signalling in Drosophila Pattern Formation

Dr. Wasserman is using genetic, molecular, and biochemical techniques to define the intracellular signalling pathway that establishes dorsoventral polarity in the Drosophila embryo. Initially, he has focussed his interests on the molecular analysis of two genes, tube and pelle. A cDNA clone for tube has been identified by its ability to direct in vitro synthesis of RNA that, upon microinjection, can phenotypically rescue embryos lacking tube activity. A cDNA clone for pelle will be obtained by a similar route. Patterns of gene expression and of post translational modification will be characterized as a means of exploring the mechanism of signal transduction. Deduced functional sites and domains in the tube and pelle proteins will be disrupted by mutations engineered in the cDNA sequences; transcripts generated in vitro from the altered cDNAs will then be assayed for activity in the microinjection bioassay. Existing or newly induced mutations for each gene will be used to generate null allele combinations for phenotypic analysis. Lastly, gel filtration chromatography and immunoblotting will be used to look for stable interactions that may define functional modules in the signalling pathway.